Industry/University Cooperative Research Center for Ultra-High Speed Integrated Circuits and Systems (ICAS)

ABSTRACT EEC-9726413 KU This two year "TIE" project funds a collaborative study with two Industry/University Cooperative Research Centers (I/UCRC). The two I/UCRC's are the Rutgers University Industry/University Cooperative Research Center for Wireless Information Networks and the University of California San Diego Industry/University Cooperative Research Center for Ultra-High Speed Integrated Circuits and Systems. The "TIE" project is entitled, "Interference Cancellation Prototyping and ASIC Development for Wireless CDMA Communication." The Rutgers University I/UCRC will investigate the critical issues of acquisition and synchronizing essential for multi-user direct sequence CDMA communication convolution coding and utilize recent results on multi carrier DS/CDMA systems. In the second year, further research to study other multi-user detection architecture will be carried out after adding radio frequency hardware. The University of California - San Diego Center will work with the Rutgers University Center in designing an interference cancellation chip and give it to National Semiconductor Corporation for fabrication. In the second year, the chip will be tested and incorporated into a CDMA communication system for multi-users.